CAREER: Operating System Support For Transactional Memory: Construction and Performance Scalability of Parallel Programs

CAREER: Self-Managing Resource Allocation in Unsupervised Distributed Systems

Recent years have seen a growing deployment of distributed computing
infrastructures such as Grids, PlanetLab, @home, and peer-to-peer systems,
that run a variety of Web, commercial, and scientific applications.
Many of these infrastructures are unsupervised---they consist of large number
of loosely-connected nodes that contribute computational and storage
resources but are not centrally managed. Such unsupervised infrastructures
are characterized by uncertainty in their resource availability caused by
failures, varying load conditions, and node churn, thus putting undue burden on
application writers and system administrators for the successful
deployment and execution of applications. This project is developing a
self-managing resource allocation framework that would hide
the infrastructure uncertainties and dynamics from applications,
while transparently adapting to changing conditions within the infrastructure.
As part of this framework, this project is developing techniques for:
(i) Predictable resource aggregation to provide resource guarantees to
applications in the presence of dynamic loads and changing resource availability,
(ii) Reliability-aware resource management to provide desired levels
of reliability and availability, and
(iii) System inference and prediction to enable decentralized inference
of global system conditions for proactive response to dynamic infrastructure changes.
These techniques are based on cooperation and redundancy among nodes in the
infrastructure to provide scalability and decentralization.
The proposed research will have significant impact on distributed
computing by enabling effective deployment of large-scale scientific
and commercial applications on resource-rich but unreliable infrastructures.